CRII: SHF: Toward Sustainable Software for Science - Implementing and Assessing Systematic Testing Approaches for Scientific Software

Scientific software is widely used in science and engineering. In
addition, results obtained from scientific software are used as evidence in
research publications. Despite the critical usage of such software, many
studies have pointed out a lack of systematic testing of scientific software.
As a result, subtle program errors can remain undetected. There are numerous
reports of subtle faults in scientific software causing losses of billions of
dollars and the withdrawal of scientific publications. This research aims to develop
automated techniques for test oracle creation, test case selection, and develop
methods for test oracle prioritization targeting scientific software. The intellectual
merits of this research are the following: (1) It advances the understanding of
the scientific software development process and investigates methods to
incorporate systematic software testing activities into scientific software
development without interfering with the scientific inquiry, (2) It forges new
approaches to develop automated test oracles for programs that produce complex
outputs and for programs that produce outputs that are previously unknown, (3)
It develops new metrics to measure the effectiveness of partial test oracles
and uses them for test oracle prioritization, (4) It extends the boundaries of
current test case selection to effectively work with partial or approximate
test oracles. The project's broader significance and importance are (1)
produces a publicly available, easy to use testing tool that can be incorporated
into the scientific software development culture such that the testing
activities will not interfere with “doing science,” (2) recruits Native Americans
and women into computer science research, (3) develops a new higher level
undergraduate course titled “Software development methods for Scientists”
targeting senior level undergraduate students in non-CS disciplines.

This project develops METtester: an automated testing framework that can effectively
test scientific software. This testing framework analyzes the source code of
the program under test and utilizes machine learning techniques in order to
identify suitable test oracles called metamorphic relations (MRs). Then, it automatically
generates effective test cases to conduct automated testing based on the
identified MRs using a mutation based approach. After that, it creates a
prioritized order of MRs to be used with testing in order to identify faults as
early as possible during the testing process. Finally, METtester conducts
testing on the program under test using the prioritized order of MRs with the generated
test cases.